Extremal problems on packing sparse graphs and hypergraphs

Many basic questions in graph and hypergraph theory can be phrased as
packing problems. We say that n-vertex graphs G_1, G_2, ... G_k
pack if there is an edge disjoint placement of all these graphs
into the complete K_n graph . More generally, n-vertex r-uniform
hypergraphs pack if there exists an edge disjoint
placement ofall these graphs into the complete r-uniform hypergraph K^r_n.
Various classical combinatorial problems can be modeled as packing
problems.
For example, the problem of existence of a spanning cycle in an n-vertex
graph G is the question whether the n-cycle packs with the
complement G . Another example of a packing problem is the
graph coloring problem: A graph G is k-colorable if and only if
packs with a graph that is the union of k cliques. Other important packing
topics are also subgraph existence problems, Ramsey-type problems, and
Turan-type problems. In particular, we consider equitable colorings,
Ramsey-type problems, minimum size problems, graph colorings, and
k-ordered Hamiltonian graphs.
Certainly, it is harder to pack dense graphs than sparse ones.
Nevertheless, many (hyper)graph packing problems remain important and
interesting for sparse (hyper)graphs. A natural measure of sparseness
is the maximum degree of a graph. Another natural measure is the maximum
average degree over all of its subgraphs. We plan to study what restrictions
on sparseness of (hyper)graphs imply that they pack. In addition to the
general packing problem, we consider packings of graphs in special families
where less sparseness is needed.